In Situ Measurements of Electrode Suface Order and Reconstruction Phenomena by Second Harmonic Generation

This project is in the general area of analytical and surface chemistry and in the subfields of laser spectroscopy and electrochemistry. This research continues the Principal Investigator's application of nonlinear optical methods and particularly optical second harmonic generation (SHG) to study electrode surface properties. The studies will comprise two categories. The first involves a detailed analysis of factors contributing to the observed optical anisotropy of a crystalline electrode surface. The second focuses on examining the sensitivity of SHG to surface stability and reconstruction phenomena induced by the properties of the electrochemical double layer. Both in situ and vacuum studies will be carried out, with the primary emphasis on metallic electrodes. Characterizing the chemical and physical interactions present at the junction between a solid and a liquid at a microscopic level is of importance to many technologically relevant areas such as the fabrication of new materials and devices, corrosion, adhesion, catalysis and thin film growth. This task is challenging owing to the difficulty of distinguishing the structure and electronic properties of the atomically thin interfacial region from those of the adjacent bulk media and the lack of suitable in situ spectroscopic techniques for investigating condensed phase interfaces. A promising new approach to this problem is the application of SHG spectroscopy since this technique is inherently sensitive to the surface electronic properties of crystalline media. In addition, the SHG signal is dependent on the orientation of the crystal and the polarization of the incident laser beam. The anisotropic response can provide information about the order and symmetry of the surface.